Development of an Expert System for High Resolution Diode Laser Spectroscopy

This work will develop an expert system for assisting and controlling high resolution diode laser spectroscopic measurements, integrating data acquisition, numeric processing and graphics capability of a laboratory micro-computer to provide rapid feedback to a spectroscopist on experimental conditions. Successful extensions of this work will accelerate the transfer of newly developed measurement technologies from research laboratories to industry.